Acquisition of 400 MHz NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most versatile tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation program will help the Department of Chemistry of New Mexico State University to acquire a high-field NMR spectrometer. The areas of chemical research that will be enhanced by the acquisition include: 1) Dynamics of Charge Localization in Photocatalyst Complexes 2) Synthetic Peptides and Organic Sulfur and Selenium Molecules 3) Synthetic Applications of Electron Deficient Nitrogen Intermediates 4) Generation and Reactions of Chemoselective Nitrenes 5) In-Situ Characterization of Modified Electrode Surfaces 6) Studies in the Conformational Changes in the Respiratory Protein, Hemerythrin.